Identification of Environmental Pollutants

PROJECT SUMMARY The requested research instrumentation includes a gas chromatograph (GC) equipped with electron capture and flame thermionic detectors, and a GC-mass spectrometer (GC-MS). These instruments will be used by chemists and biologists for identification and quantification of organochlorine and organo phosphorus pesticides in Neotropical migrant passerines (i.e. songbirds that breed in North America and winter in Mexico, Central and South America) with reported declining populations. Few data are available on the extent to which Neotropical migrants are contaminated, and this baseline data is critical to understanding the impact of organochlorine and organophosphorus chemicals on these birds. The objective of this project is to involve undergraduate students in determining more fully the pattern of pesticide levels in Neotropical migrant species with reported declining populations, and to correlate these levels with age class, gender, food habits, wintering range, and winter habitat preference. Funding of this proposal will allow students to take part in collecting and preparing birds for analysis, and identifying and quantifying pesticide levels in them. They will receive course credit in Chemistry 499 (Chemistry Research) or Biology 499 (Biology Research), be co-authors on papers submitted for publication, and present the results of their research at professional meetings. Thus, this project will provide chemistry-related information of vital importance to conservation biology, while preparing undergraduate students for careers in research. The GC-MS will also be used in another project involving undergraduate students to study the production and fate of hydroxyl radicals formed photochemically from common pollutants in the environment. Students will take part in all aspects of the project (e.g. photolyzing solutions of nitrous acid/nitrite ion, extracting aqueous photolyzate, s eparating components on the GC-MS), earn course credit, and present and write papers as described above. Illinois Wesleyan University opened the doors of its new 130,000 square-foot Center for Natural Science Learning and Research in August l995, which doubled the number of teaching labs and research labs opened new opportunities for new pedagogies. The Center is organized around two concepts: 1) a "community of science" and 2) the undergraduate research experience. In 1992, eight of 10 or 80% of the graduating chemistry majors were among the 31 Illinois Wesleyan seniors going on to Ph.D. studies. All students had assistantship offers, several from such places as MIT, Yale, Princeton and UC-Berkeley. Several also received prestigious fellowships. One such award went to Jane Johnson, one of 30 chemistry graduate students nationwide awarded the highly competitive NSF graduate fellowship. This is outstanding evidence of the benefit that participation in undergraduate research has in terms of fostering professional career aspirations. The 30 entering freshmen chemistry majors in Fall 1994 had an average ACT Composite of 29.4. Eight of those students are women with an average ACT of 30 or above. The Biology Department at Illinois Wesleyan University has attracted a large number of high quality students over the past two decades. Indeed, more students continue to apply to the biology program than to any other on campus--approximately 500-600 per year. The average ACT score for these students is 30 and the SAT composite 1212. Currently there are 210 biology majors or 13 to 15% of the student body and 17% of the liberal arts college. In 1995, 73% of the graduating class of biology majors went on to graduate degree programs. Because of this, a substantial number participate in various areas of biological research in their graduate education. The opportunity to initiate or participate in research at the undergraduate level provides a particula rly valuable learning experience. Investigative lab experiences in courses provide important background, but are not a substitute for the creative processes, conceptual innovation, literature searches, experimental design, successes and failures, formal analyses, and written communication required by an independent research project. The requested instrumentation will enhance the research training of these students while increasing the productivity of the faculty.